Theoretical Helioseismology and Asteroseismology

The Principal Investigator (PI) proposes to use solar and stellar oscillation data to learn about the interiors of the sun and the stars. This technique of studying the sun and the stars is relatively new, called helioseismology and asterseismology, respectively. In particular, the PI proposes 1. to place limits on possible poloidal and toroidal magnetic fields in the Sun's radiative interior, 2. to deduce phenomenologically the effect of the Sun's dynamo field on the oscillation data and on the global, surface tempeture dips as functions of longitude, and 3. to determine the magnetic fileds in certain Ap stars and why and how these stars pulsate. Collaborations are proposed with Kuhn of the Michigan State University, with Dziembowski, Kozlowski, and Sienkiewicz of Poland, with Shibahashi of Japan, and with Kurtz of South Africa.